Correlation of Phreatomagmatic Depositional Features with Eruptive Events at the Ukinrek Maars, Alaska

The proposed project will correlate deposits and individual strata with recorded hydrovolcanic eruptive events at the Ukinrek Maars, Alaska, in order to understand the processes involved in eruption and emplacement of phreatomagmatic deposits. Our results will provide a means for inferring diverse phreatomagmatic eruption styles from the characteristics of deposits in places where the eruptions were not observed. The underlying reason for this research is to aid understanding of hydrovolcanic processes for hazards assessments. Hydrovolcanic eruptions commonly include "blast" events that are among the most devastating and hazardous of all eruptions. It is of fundamental importance for hazards evaluations to recognize these deposits, as they are commonly mistaken for re-worked volcanic deposits.